Complexity and Variational Problems in Riemannian Geometry

Abstract

Award: DMS-0405954
Principal Investigator: Alexander Nabutovsky

Firstly, we are going to study the length of a shortest closed
geodesic and a shortest closed geodesic net on a compact Riemannian
manifold. Secondly, we will also study possible topologies of closed
geodesic nets on surfaces. Thirdly, we will try to resolve the
following problem posed by M. Gromov: Is it true that all closed
geodesic nets on a compact surface always form a dense subset?
Fourthly, we will be interested in curvature-free bounds for the
smallest area of a non-trivial minimal surface in a closed Riemannian
manifold. In another direction we will be studying Morse landscapes of
Riemannian functionals and functionals on spaces of
submanifolds. Earlier we developed methods based on recursion theory
that enable one to prove that Morse landscape of many interesting
functionals on these spaces are extremely complicated. Now we will try
to develop methods yielding quantitative information about graphs of
these functionals and to extend our approach to a wider class of
functionals that includes Sobolev norms of various curvatures
normalized by a power of volume.

When one studies the geometry of the round sphere one naturally
notices the equator, meridians and other ``big" circles on it. These
curves are examples of closed geodesics. Now let us deform the sphere
so that it is not round. Remarkably, there still will be closed
geodesics on this surface, and the shortest of them will not be too
long. We would like to know how exactly its length is related to the
area and the diameter of the deformed surface. We will also study
similar questions for Riemannian manifolds that are higher dimensional
generalizations of surfaces. On the other hand note that the round
sphere has the nicer shape than all deformed spheres. It is less clear
what is the nicest shape of the torus (the ``pretzel"). We are going
to investigate what happens in higher dimensions where typically there
are infinitely many competing ``nice" shapes and a lot depends on what
exactly do we mean by ``nice".